RUI: Auditory Psychomotor Coordination of Visual Search

The human auditory system is very important for spatial orientation. Hearing is the only sense that can provide information about the position of remote events regardless of where the observer is currently facing. The lateral location of the ears make the auditory system well situated to direct positional changes of the head and the eyes toward a target of interest. Recent experiments have shown that the time required to locate and identify a visual event is substantially improved if auditory spatial information on the location of the event is also available. This research project considers the following issues: 1) What are the factors underlying the improvement in visual search, for both horizontally and vertically distributed targets, when aural aids are available? 2) Does this auditory spatial advantage extend to visual search in depth, toward and away from the observer? The results will have implications for any situation in which efficient visual scanning is critical and acoustic spatial information can be made available, such as visual arrays in cockpits or air traffic control systems, development of mobility aids for individuals with visually restricted visual fields, and pedestrian or industrial safety.